Badging Professional Skills in CTE Programs

Recognizing the growing pressure to deliver career-ready graduates at a reasonable cost, more community colleges are exploring online badges and micro-credentials to provide students and faculty with portable evidence of specific job-relevant competencies. The R&D team from SRI Education and Evergreen Valley College intends to investigate and develop an institutional level badging and micro-credentials program and system. Many badging and micro-credential programs document technical competencies, but the field lacks understanding of how such programs can increase institutional capacity to develop STEM technician students' professional skills competencies, such as communication, teamwork, capacity for life-long learning, and adapting to the workforce. The overarching goal of the project is to investigate and develop micro-credential programs for both students and faculty related to teaching and learning professional skills. STEM technical students will use badging to document their development of professional skills for future employment, sharing the badges digitally through LinkedIn and on their resumes. STEM technical faculty will use badging to document their learning of new instructional strategies to teach professional skills in their classes.

Project objectives are to (a) design, test, and implement a badging sequence for professional skills micro-credentials for students to document satisfactory completion of instructional activities; (b) design, test, and implement a badging sequence that supports and documents instructors’ integration of activities and reflections into courses; (c) develop a strategy for engaging employers and linking to badging ecosystems to build acceptance and recognition of professional skills micro-credentials; and (d) explore ways for colleges to track participation, achievement, and workplace testimonials. The team intends the badging sequence framework to be adaptable for use in other college programs and settings. The mixed methods research and development effort is intended to produce three products to guide future badging and micro-credentialing programs for STEM technicians' professional skills: (1) a formative evaluation that documents and assesses how to assemble incentives to build capacity for instructors and students; (2) a mixed methods study that tracks how different levels of instructor and student engagement and achievement relate to instructors' teaching confidence and students' career readiness; and (3) a sub-study that disaggregates program trends by instructors' and students' backgrounds and professional experience. By targeting the development of professional skills, the approach aims to establish opportunities and system capacity to foster the participation of a diverse population of highly skilled technicians in STEM fields. The project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced technology fields that drive the nation’s economy.